Mathematical Sciences REU Site: Mount Holyoke Research in Mathematics

This REU site award provides support for ten undergraduate researchers in mathematics working under the supervision of several faculty advisors. The research at this site will be on topics in algebra and number theory. The program will run for eight weeks. The students will be expected to make oral progress reports throughout the summer and a final written report at the end.